Undergraduate Faculty Enhancement in Mathematics

The teaching of undergraduate mathematics courses for future school teachers is being enriched by week-long summer workshops for college and university faculty in which they will: Goal 1. experience new teaching strategies and techniques. Goal 2. experience examples of non-test based assessment schemes. Goal 3. learn about and observe these and other examples of pedagogical techniques that have been successful in encouraging women and underrepresented minorities to excel in mathematics. Goal 4. learn new subject matter and experience new instructional materials being produced by the Cornell Undergraduate Geometry Project which relate both modern and rarely studied geometry topics with the mathematics subject matter of the middle and high schools. Goal 5. have the opportunity to interact and share with colleagues and experts who have common interests in the teaching of mathematics to future school teachers, and to develop plans to incorporate both teaching techniques and new curricular materials into their own courses. Goal 6. learn about and share ideas concerning the recent recommendations, guidelines and standards put forth by the Mathematical Sciences Education Board (MSEB), the National Council of Teachers of Mathematics (NCTM), and in publications of the Mathematical Association of America (MAA) concerning changes in the teaching of undergraduate mathematics. Goal 7. be committed to participate after the workshop in several of the planned follow-up activities.